Static and Dynamic Configurations in Liquid Crystals

This project is focused on mathematical problems arising from the
study of liquid crystal materials, especially on understanding
static configurations flow patterns. One area of the research is to
study the defect and molecule configurations
of minimizing solutions of the liquid crystal energies under
different (both strong and weak anchoring) boundary conditions and
external fields. Such energies include the Oseen-Frank energy for nematic
liquid crystals, the Landau-de Gennes energy for smectic ones, etc.. The
awardeee will apply the regularity theory for solutions of partial differential
equations to these problems. Liquid crystal materials also experience complicated
phase transitions under different conditions. A systematic effort will be
made to study the stability of the configurations and bifurcation
phenomena in different regimes. Finally this research addresses
the dynamic properties of different types of liquid crystals. Recent
experimental and theoretical results indicate that there is an interesting
coupling between the molecule director field and the flow velocity field.
Therefore it is important to consider these vector fields simultaneously
and study the interaction between them. The proposer will investigate
both the theoretical and computational aspects of this coupling problem.
The focus is to illustrate the flow effects on the different configurations.
The anisotropic characteristics of the material will cause the flow
to exhibit non-Newtonian features which in turn corresponds to defects and
different molecule patterns.

As a special phase of matter, liquid crystals were discovered
more than a century ago. Liquid crystal displays (LCD)
have been widely used in industries. The fundamental research
of such materials is very important. For example, the presence of defects
not only affects the manufacturing procedure of the devices, but also
provides a new kind of display where the defects contributes to higher
accuracy and memory of the material under external fields. This research will
focus on mathematical models for liquid crystals, in particular on possible defect
configurations and their behavior over time. This study of static and
dynamic defect structures will help to improve the modeling and design
of such devices. Moreover, an improved understanding of liquid crystals
has benefits for broader classes of materials that are important, such as
polymeric and biological materials.